Multiple Description Source Codes with Applications to Packetized Speech

This research is a study of the design of multiple description source codes for correlated sources and for speech. A multiple description source code provides the receiver with two different descriptions of the source sequence. Hence, if one description is lost, the other can be used to reconstruct the source. It is also desired that if both the descriptions do reach the receiver, the performance is strictly better than if only one of the descriptions were to arrive. Thus the two descriptions must be different and individually good. The first objective is to study multiple description codes for correlated sources. This includes the design of good codes as well as the derivation of performance bounds which are not currently available in the literature. The final goal is to design good, low complexity multiple description codes for correlated sources. The second objective is to study the applications of multiple description source codes to speech transmission over packet- switched networks. Packet losses are a significant detriment to speech quality and multiple description source codes are a good way to reduce performance degradations due to packet losses. This research will investigate whether significant quality improvements can be achieved by designing low bit rate waveform and vocoder based multiple description speech coders.